Acquisition of ICP for Research and Research Training

0132169
Bierman

This grant provides partial support for acquisition of an inductively coupled plasma, optical emission spectrometer (ICP-OES) and sundry sample preparation equipment. The newly established ICP facility in the Department of Geology, University of Vermont, will be dedicated to research relying on high precision trace element analyses of natural samples and the teaching of students with ICP analytical techniques and their applications. The new ICP lab will serve faculty members Bierman, Klepeis, Lini and Rusher for studies including determination of post-glacial surficial weathering rates, investigations of the petrogenesis of igneous plutons, research on experimental phase equilibria, and environmental impact studies.
***